STTR Phase I: New devices for the rapid and accurate characterization of airborne microbes

The broader reaching impacts/commercial potential of this Small Business Innovation Research project stems from the development and application of a new generation of cost-effective devices that can efficiently recover, preserve and quantify airborne microbes in near real time. An improved ability to characterize the microbiology of indoor aerosols has a multitude of important engineering and public health benefits for urban society. This includes a vastly improved ability to monitor bioaerosols in health care settings; in water-damaged buildings; in plane/rail/bus transportation centers; as well as other high-density public venues. Through this work, emerging aerosol technology will be optimized and deployed in portable instrumentation that reports what currently marketed aerosol monitoring equipment cannot provide: the identity, distribution and abundance of airborne microorganisms indoors. This approach provides an unprecedented path to compile large exposure databases, which enable the scientific and medical community to better understand the potential effects of indoor microbial air pollution. Compared to conventional aerosol sampling, these new filter-less devices require little human oversite, communicate aerosol data to cloud-based servers, and preserve bioaerosol samples with exceptional fidelity. These next generation instruments provide an innovative, unobtrusive and practical method for surveying the indoor air we breathe every day, in near real-time.

This STTR Phase I project integrates portable lasers for real-time microbe enumeration, with humidity controls that efficiently recover bacteria, fungi and pollen from indoor air. This advanced equipment assembly accurately counts, preserves and concentrates airborne microbes for stringent biochemical analysis that is relevant to public health. The opportunity for this new instrumentation leverages the fundamental technological advantages it has over conventional sampling equipment, which until now predominantly relies on filtering large quantities of indoor air. The mechanical stresses microbes must endure during conventional air filtration, seriously compromises the accuracy of airborne microbial analyses. The research objective of this work is to challenge this novel instrumentation array with known quantities of airborne microbes that commonly inhabit the indoor environment. Using widely accepted engineering and biochemistry methods, the overarching goal is to systematically validate the efficiency of this new equipment, both in the laboratory and in the field. We anticipate markedly better quantitative recovery of airborne microbial activity and genetic material (DNA) where directly compared to its filter-based counterparts. Thus, the commercial and societal value of this new instrumentation is realized through displacing outmoded aerosol collection methods with highly efficient filter-less air sampling devices, outfitted with modern optics and digital automation.